SBIR Phase I: The Synthesis of Air-stable Copper Nanoparticles for the Printed Electronics Industry

This Small Business Innovation Research Phase I project is to test the feasibility of the chemical synthesis for the production of copper nanoparticles, which are stable on the air, for the electronic industry. UT Dots will develop a synthetic procedure for the production of copper nanoparticles that will be formulated as ink for printable electronic industry.

Air stable copper nanoparticles may be used in a wide variety of applications.